NSF Project Showcase

PROPOSAL ABSTRACT Proposal Number: 9633956 Proposal Title: NSF Project Showcase Abstract: The American Society for Engineering Education (ASEE) is administering NSF Project Showcase for the National Science Foundation,. NSF Project Showcase is an exhibition of products and findings resulting from educational projects sponsored by NSF. NSF Project Showcase is being held at the 1996 ASEE Annual Conference and Exposition in Washington, DC, on Monday, June 24, 1996. NSF Project Showcase consists of 20 booths in the exposition hall. One project is exhibited per booth. Each Principal Investigator has their own exhibit booth and displays the results of their NSF sponsored project to the attendees of the conference.